Conference: Structures and Mechanisms of Membrane Transport Proteins to be held at the Marine Biological Laboratory, Woods Hole, Massachusetts on September 7-9, 2000

Lanyi
MCB 9986756

This conference "Structure and Mechanism of Membrane Transport Proteins"
Is the annual symposium of the Society for General Physiologists and will be held at the Marine Biological Laboratory, Woods Hole, September 7-9, 2000. The meeting will address the recent confluence of high-resolution molecular structures with functional mechanistic analyses of membrane transporters: ion channels, primary active transport pumps, and secondary transporters. The meeting was organized in response to the appearance in the past two years of novel structures of membrane transporters, an immensely exciting development for the transport field. The meeting will bring together scientists working on the front lines of membrane transport mechanisms with the structural biologists who are cracking the problem of structure determination for integral membrane transport proteins.